FDSS Track 2: Ionospheric Space Weather Faculty Line at the University of Massachusetts Lowell

The Faculty Development in geoSpace Science (FDSS) opportunity aims to integrate geospace science--to include solar and space physics and space weather research--into natural sciences, engineering or related departments at U.S. institutions of higher education and stimulate the development of undergraduate or graduate programs or curricula capable of training the next generation of leaders in geospace science. Funds from this award will support the creation of a FDSS tenure-track position in the Department of Electrical and Computer Engineering in collaboration with the departments of Physics and Environment, Earth and Atmospheric Science.

The FDSS research focus is space weather, especially ionospheric effects on communication and navigation technologies. The FDSS hire will develop space weather courses and create interdisciplinary bridges between the PhD programs in aerospace science and aerospace engineering.